Microbiosensors to Evaluate Free Radical Activity in Tissue

This is a proposal to develop microbiosensors that can measure biochemical substances at the cellular level. Substances whose activity is to be measured include ascorbic acid, free fatty acids, free radicals and superoxide dismutase. The sensor is based on the PI's previously developed miniature oxygen, hydrogen peroxide, and pH electrodes. The tip of the micropipette containing the electrodes will be covered with a membrane; the micropipette will be filled with appropriate commercial enzymes that are selected on the basis of the substance to be measured. Since oxygen- derived free radicals are known to damage vital tissues, sensors to measure substances associated with free radical activity could substantially contribute to the gaining of basic knowledge aimed at preventing and treating oxygen-related injury.